National Geographic Kids Network Project

The National Geographic Kids Network Project is a series of exciting, flexible elementary science units featuring cooperative experiments in which students in grades 4-6 share data nationwide using telecommunications. Topics will involve students in issues of real scientific, social, and geographic significance. Combining basic content from typical school curricula and guided inquiry learning, the Network Project can be used to supplement textbooks and existing materials or to form complete year-long science courses. Technical Education Research Centers will produce six units and software for sending, processing, and displaying data. The National Geographic Society will develop at least four additional units, publish all the materials, and provide teacher development assistance. Materials and telecommunications will be designed for practicality in partnership with experienced classroom teachers and administrators. The telecommunications will be software-controlled for ease of use and reliability. The National Geographic Society and a network of professional organizations, state education agencies, and museums will widely disseminate information about the program. Local support and technical assistance will be generated through industry members of the Triangle Coalition for Science and Technology Education, school boards, and community groups. This project is a superb response to the Solicitation, Programs for Elementary School Science Instruction, issued by the Instructional Materials Development Program. The project has high potential for bringing about a meaningful change in elementary school science learning and teaching. The project director, through training and experience, is eminently qualified to conduct activities. His track record speaks well for the success of this project.